Conference: The 11th Workshop on Biostatistics and Bioinformatics

The 11th Workshop on Biostatistics and Bioinformatics will be held at Georgia State University in Atlanta, GA from May 8–10, 2026. The workshop will focus on cutting-edge topics, including functional neuroimaging, precision medicine, genetics and genomics data analysis, and big data analytics. The program will provide researchers with opportunities to engage in scientific discussions and foster collaborations. Special consideration is given to supporting junior researchers and graduate students and promoting an intellectually stimulating environment. Through interactive sessions and networking opportunities, the workshop will advance research innovation and facilitate the dissemination of high-impact work in biostatistics and bioinformatics.

The workshop aims to advance the frontiers of research in biostatistics and bioinformatics through collaborative research across multiple universities. The workshop program features a keynote lecture by a distinguished statistician, invited talks from both established and emerging experts, and poster presentations by junior researchers and graduate students. In addition, the workshop will offer a short course and Best Student Poster Awards will be presented to recognize outstanding contributions. For further details, visit the workshop website: https://math.gsu.edu/yichuan/2026Workshop/index.html.